Integrated Mathematics, Science, and Technology (IMaST), Phase II

9550546 Fisher IMaST II is a year long eighth grade course that reflects the strong interactions between mathematics, science and technology. Like the seventh grade model on which it is built, it requires 120 minute per day for the year; but students may be in separate classes. The coordinated content focuses on environmental science including biological, physical and Earth science; algebra and geometry; and communication, construction and transportation technologies. The instruction is constructivist, activity-based, and uses the learning cycle. It emphasizes problem-solving, using real world situations and applications and exhibits the connections among disciplines and between local and global concerns. The materials are developed through the collaboration of master teachers, curriculum specialists and consultants from industry and education. They are field tested in ten different schools. The modules include student and teacher editions, an implementation guide for administrators, and results of ethnographic studies and evaluation data for the program.